Purchase of CCD X-ray Diffractometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Virginia will acquire a CCD X-ray diffractometer. This equipment will enhance research in a number of areas including the study of complexes for asymmetric catalysis; metal core macromolecules; small metallacarborane clusters and sandwiches: use for directed synthesis and studies of their reactivity and physical properties; new transformations for arenes, aromatic heterocycles, dienes, alkynes and substituted olefins such as pentaammineosmium(II); enantioselective reactions with arenes; organic reactions of heterocycles; alternative dearomatization agents; polymer chemistry, catalysis, organometallic chemistry and organic synthesis; synthesis of natural products such as cembranes and cembranolides; polypropionates; annonaceous acetogenins; glycobiological chemistry; and biologically important carbohydrate recognition processes.

The X-ray diffractometer allows accurate and precise measurements of the full three dimensional structure of a molecule, including bond distances and angles, and it provides accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.